RUI: Temporal Effects on Attributions

This research is designed to identify and explain systematic changes in causal attributions over time. Past research has indicated that the explanations people give for their own and others' behaviors often are different if the attributions are assessed immediately after the task of several days afterward. Consistent with past work on attributional phenomena, several motivational and cognitive explanations for these effects are proposed. The motivational explanations posit that people forget reasons for behavior in self-flattering ways, leading to more ego-flattering attributions over time. One cognitive explanation is that attributions become simplified over time, resulting in the exaggeration of differences seen immediately after the task. Two other cognitive variables that would seem to have an impact upon changes in attributions over time are the salience of the attributionally-relevant material, and the consistency of the material with the attributor's existing cognitive structures. Eight experiments will examine one or more of these explanations each. At times the experiment has been designed to test two competing explanations for the predicted effect. However, the combined findings from the series of proposed investigations is expected to provide evidence for the role of all of these proposed mediators in the systematic changes in attributions over time.